Acquisition of a Stable Isotope Mass Spectrometer and TandemUV-CO2 Laser System

9727141 Sharp This award provides 60% of the funding required for the acquisition of a stable isotope ratio mass spectrometer with differential pumping and elemental analyzer interface, and UV-CO2 laser microsampling and optical micropositioning systems. The equipment is to be installed in the Department of Earth and Planetary Sciences at the University of New Mexico. The University of New Mexico is committed to providing the remaining 40% funding required for this acquisition. The instrumental system will be primarily used in the Principal Investigator's research in paleoclimatology and will be open to colleagues at the University of New Mexico and elsewhere. It is anticipated that the instrument will be heavily used by students and will play an integral role at the University of New Mexico in the training of graduate and undergraduate students in modern analytical methods. ***